Basic Research in Artificial Intelligence

The focus of this research is the development of formal methods of nonmonotonic reasoning to express commonsense knowledge and reasoning. Additional epistemological problems will be investigated, including formalization of the notions of context and mental situation. It is intended that this work will make it possible to develop a general purpose database of commonsense facts. Work will also proceed on the formal expression of heuristics. Specific topics include introspective circumscription, the ramification problem, the description of creating and destroying objects in the situation calculus, and ontologies of time and action.